Committee on Geophysical Data

This is an award to the National Academy of Sciences for the operation of the Committee on Geophysical Data (CGD). The CGD will give priority to the needs for environmental data and information to support global change research. It will work with the Interagency Working Group on Data Management for Global Change in developing national and international plans and will continue activities related to World Data Center-A and U.S. national data centers. The CGD has, over the last two years, been deeply involved in defining the elements of a strategy for global change data and information management. With a membership drawn from a number of environmental disciplines, the CGD has attempted to represent the views of a broad segment of the environmental science research community This award will enable the CGD to continue its close liaison with the IWG and to put a major emphasis on giving advice on the scientific aspects of global change data management.